Constraining The Connection Between The SW Indian Ocean Monsoon And North Atlantic Climate

Science Summary: This proposal requests support to test the hypothesis that the millennial changes in Oxygen Mimimum Zone intensity in the Arabian Sea are directly related to changes in the intensity of upwelling-favorable winds associated with the SW Indian Ocean monsoon. Past changes in monsoon-driven productivity will be traced by measuring a proxy (231Pa/230Th ratio) that is insensitive to sediment focusing and to changes in bottom water oxygen content. The study will be performed on sediment cores from the Pakistan margin.